Autotrophic Denitrification of Drinking Water Using Microporous Membrane Bioreactors

9908906 Ergas This is an award to support research investigating the possible use of a microporous membrane bioreactor for hydrogenotrophic denitrification of water containing excessive concentrations of nitrates. The membrane serves to support the microbial population capable of oxidizing hydrogen and accomplishing denitrification, increases the rate at which mass transfer of hydrogen is accomplished and acts to separate the active microbial culture from the water being treated. Objectives of this project are to investigate the factors that control hydrogen and nitrate mass transfer to the microbial culture, to determine denitrification rates and impact of the process on water quality. Results of this research are expected to provide the basis for calibration of mathematical models of hydrogen and nitrate mass transfer and biodegradation in membrane-based processes for treatment of water to reduce concentrations of nitrate to acceptable levels. These models are in turn expected to provide the basis for determining the potential application of processes based on this concept in engineering design of systems that address nitrate contamination of ground and surface water. ***